Hawaii Ocean Borehole Observatory (HOBO)

Orcutt 00-02595

Recommended project is for testing of a broadband, high dynamic range seismic data system in a land-based borehole at Pinon Flat Observatory in California. This work is needed to optimize borehole seismometer installation at about 20 proposed permanent sites in the deep oceans that are needed to fulfill objectives of global seismic coverage as defined by the IRIS Global Seismic Network (GSN), in conjunction with the international Federation of Digital Seismic Networks. This proposal covers a series of experiments to reduce installation noise that was experienced in an earlier seismometer borehole installation at the OSN-1 site near Hawaii.
***